BioMEMS Workshop: Emerging Frontiers and Applications, Bosto, MA, July 29-August 2, 2013

1259027
Khademhosseini

Intellectual Merits: The emergence of micro- and nanotechnologies have changed much of what is possible in research today and have opened up new possibilities in exploring the surroundings and generating new ways of improving human life. Also they have become one of the most "game changing" fields in science over the past few decades. Given the increasing amount of interest in this area we aim to develop an educational workshop on the use of micro- and nanotechnologies and their applications and emerging research frontiers. This workshop will bring leading experts in the area of micro- and nanotechnology to present the latest work on the use of various types of technologies for addressing a range of different challenges that are of importance for biomedicine and education of engineers at the interface of engineering, medicine, and biological sciences.

The proposed workshop will be held in Boston, on July 29-Aug 2, 2013. The workshop will be held near MIT and Harvard Medical School at the center of some of the leading facilities in the world. The goal of the workshop is to provide a forum to discuss research at the interface between engineering, biology and medicine, to present a program that is highly rich in both intellectual merit as well as educational opportunities. In particular the workshop brings together students from various academic institutions with world leading experts in a small and intimate setting that will enable ample opportunities to network and learn. The workshop will focus on a number of unique areas that are highly inter-related yet not fully put together in a similar program. These areas include fundamental science of micro- and nanofluidics and small matter to applications in engineering the environment of cells using various small-scale? technologies, developing devices to detect and analyze molecules for biosensing and global health applications. Another unique aspect of the workshop is the involvement of people from companies. The proposed workshop will generate a range of opportunities for students and young investigators to learn about the process of developing and commercializing a technology from industry speakers.

Broader Impacts: The potential impact of this proposed workshop on micro and nanoengineering is far-reaching. Since this workshop combines fundamentals of micro and nano science and engineering with their applications in medicine, it will catalyz conversations between otherwise disparate fields. Various biomedical grand challenges facing our society and the world can be addressed in part or in whole by interfacing biology and medicine with nanotechnology. By drawing leaders from each of these fields together to discuss ways of addressing important medical issues with the most cutting edge technology in an intimate venue, it will enable progress at the interface of science, engineering, and medicine. To maximize the broader impact of such a promising workshop, we propose several approaches to raise awareness, with the larger scientific community as well as engage participation by under-represented minorities by hosting: 1) Opportunities for students to engage more intimately with thought leaders. Students can get to know leaders in the field through meetings to help guide and further their careers. Having access to mentors is a critical component for a successful education, and therefore providing a forum to engage mentor and student interactions would help facilitate this. 2) Encouraging women in Science, Engineering, and Medicine. With still so few women in engineering and science, it will encourage in which women can learn from established role models as well as open a dialogue on how to best attract and engage women in these burgeoning fields is needed. 3) Travel grants for US students. These grants will enable students who otherwise cannot afford to come to participate in this workshop. The grants will be distributed based on merit (quality of paper submission) with consideration for inclusion of under-represented minorities and women.